Fertilization Symposium: Fifth International Invertebrate Reproduction Congress, July 23-28, 1989, Nagoya, Japan

The objective of this proposal is to provide travel costs for three speakers to participate in a symposium on Fertilization to be held as a part of the 5th International Congress of Invertebrate Reproduction in Nagoya, Japan, July 23-28, 1989. The speakers in this session will describe current work on echinoderms, echiuroids and ascidians covering frontier research on biochemistry of egg envelope formation, molecular basis of sperm-egg binding, receptors for egg activation, transduction of ionic signals into metabolic responses and the enzymology of sperm passage through the egg coat. %%% This Congress is unique in looking at reproduction in the invertebrate phyla and brings together researchers from around the world. The opportunity provided will lead to important dissemination of information and to further research insights about fertilization in particular and development in general in important invertebrate model systems.